Combustion Nitridation Processing in Aerosol Flow Reactors

Abstract 9803539 A. Weimer, University of Colorado at Boulder The objective is to develop a model for exothermically reacting aerosol particle generation mechanisms (coagulation, coalescence, and deposition) with application to combustion nitridation synthesis of fine ceramic particles, and to validate the obtained model with data from ceramic particle formation experiments. An aerosol reactor shaped as a tube will be constructed with capabilities to measure temperature and wall deposition along the tube. The P.I. will collaborate in modeling with Prof. S. Pratsinis (University of Cincinnati). Several ideas are advanced for generation of ceramic composite particles and redirection of thermophoretic deposition from the reactor wall. It is expected that an improved model for particle growth and structure, and a reduction of wall deposition in manufacturing of advanced ceramic powders by exothermic processing The research has relevance to high temperature synthesis of nonoxide ceramic material in aerosol flow reactors. ***